Synthesis Considerations for Reliable Networks

The reliability of a network (the probability that the network remains connected when some of its links fail) is of importance in the design of any system. The synthesis problem involves the design of an optimal network given certain design parameters and constraints. While most synthesis procedures are heuristic, Professor Boesch will investigate algorithms for exactly determining optimal networks.